Mathematical Sciences Computing Research Environments

The Department of Engineering Sciences and Applied Mathematics and the Department o Electrical Engineering and Computer Science of Northwestern University propose to purchase a Silicon Graphics IRIS Crimson/VGXT graphics workstation together with peripheral equipment to allow for hard copy and video output. The equipment will be used to provide graphical analysis and animations for the following research projects: . Visualization of the complex spatial and temporal patterns that occur in combustion. . Visualization of the development of microstructures in solidification. . Visualization of complex spatial patterns an temporal dynamics governed by Ginzburg-Landau, Kuramoto-Sivashinsky and other generic amplitude equations. . Visualization of both the spatial structure and the evolution of shear bands in viscoplasticity.